Chaotic Dynamics in Near-Integrable Systems and the Role of Symmetries

This award will support research on mathematical models for nonlinear
optical media. These models have the form of nonlinear partial differential
equations that are integrable, i.e. that can be completely linearized in a
certain sense, and of perturbations of such equations. The goal of the research
is to further our understanding of chaotic excitation mechanisms for such
models and to obtain specific solutions that correspond to periodic or single-pulse
waveforms. The theoretical results will also be used as benchmark problems for
numerical computation schemes.

Mathematical models for optical media such as optical fibers and ring-laser
cavities have the form of nonlinear differential equations. This research
will address properties of such models that predict the behavior of such media.
Examples include the natural shape and duration of light pulses that can
travel along such fibers and the spontaneous generation of noise within the medium.